Radiochemical Studies of Hydrothermal Processes: Rates and Timescales

Radiochemical investigations will be made on material from two well studied systems (Endeavour Ridge and the S. Juan de Fuca Ridge) which have been shown to have specific, different chemical and physical characteristics. These differences may be related to variations in particular process timescales which, in turn, can be resolved by radioisotopic studies. The focus of this work will fall on two aspects of these systems: 1) The crustal residence time of the hydrothermal fluids will be studied by measurements of 210Pb/Pb, 228Ra/226Ra and on the venting fluids. 2) Chemical scavenging rates and particle settling within the hydrothermal effluent plume will be studied by measurements of 210Pb, 210Po and Th isotopes on water samples and suspended vent and plume particles.